Structural Laboratory and Reaction Strong Wall Facility for Full Scale Pseudo Dynamic Testing

In this project, an experimental laboratory will be upgraded during the construction period to enhance and improve the capability of the facility to conduct research projects on full- or large-scale five-story buildings of masonry, steel or reinforced concrete. The long strong floor will provide a capability to perform research on multi-span continuous bridges, not now available in the United States. The laboratory will be the only one of its type in the United States capable of full- or large-scale experiments on buildings and small- or large-scale projects on bridges. It will provide the United States with a unique experimental laboratory. Experiments on buildings and bridges will be performed using sophisticated loading devices and instrumentation.